Computer Workstations for Chemical Theory and Experiment

This award from the Chemistry Research Instrumentation Facilities Program will assist the Department of Chemistry at Stanford University in the purchase of an upgrade of their computational facility using DEC Workstations. This equipment will enhance research in a number of areas including the following: (1) Dynamics and Structure in Complex Molecular Systems, (2) High Performance Computing for Biophysical Spectroscopy, (3) Electronic Structures of Active Sites, (4) Chemical Reactions Far From Equilibrium, (5) Molecular Dynamics Computer Simulations, and (6) Theoretical and Computational X-ray Absorption Spectroscopy. A workstation network of fast, modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, and provides state-of-the-art graphics and visualization facilities.